Stochastic Analysis of Gaussian Fractional Noises

The project aims to establish new results in different topics of
stochastic analysis. First a new approach for proving the smoothness
of the density for solutions to stochastic partial differential
equations will be introduced. This method is based on a stochastic
version of Feynman-Kac's formula for the Malliavin derivative of the
solution. Moreover, the techniques of Malliavin calculus will be
applied to derive upper and lower Gaussian estimates for the density of
the solution. A second objective of the project is to obtain results
on the rate of convergence of Euler-type numerical approximation schemes
for stochastic differential equations driven by a fractional Brownian
motion. The application of the techniques of Malliavin calculus to
analyze numerical approximation schemes for backward stochastic
differential equation is also one of the topics of the project.
Another research direction deals with the proof of central and
noncentral limit theorems for a large variety of functionals of a
Gaussian process, including multiple stochastic integrals, and weighted
power variations. The project also aims to establish Feynman-Kac's
formulas for the one-dimensional stochastic heat equation driven by a
fractional multiplicative Gaussian noise.

Stochastic analysis is an active area in mathematics which is motivated
by the study of ordinary and partial differential equations perturbed by
a random noise. These equations play a central role as models in many
areas of physics and economics. The application of these equations in
concrete problems requires suitable numerical approximation schemes,
and convenient estimates for the probability distribution of the
solution. This project aims to make new relevant contributions to these
problems, by developing and applying powerful mathematical
techniques such as the Malliavin calculus. On the other hand, motivated
by some applications in hydrology, telecommunications and mathematical
finance, there has been a recent interest in input noises possessing a
long memory property such as the fractional Brownian motion. The
development of a stochastic calculus with respect to these long memory
processes is also one of the aims of this project.